RUI: A New Iterative and Computationally Efficient Frame- to-Frame Motion Estimator

Image frames are generated by scanning a scene several times a second. Frame-to-frame motion estimation in the moving part(s) of the scene are of interest. The objective of this work is to develop and implement a new iterative and computationally efficient algorithm for estimating non-uniform frame-to-frame motion from noisy data. The algorithm is based on the generalized maximum likelihood criterion and referred to as the GML algorithm. The algorithm is implemented using 2D fast- Fourier transform techniques using Markovian random field models to represent the motion vectors. Performance and sensitivity analysis are made to test the suitability of the algorithm for real world applications.